Presidential Young Investigator Award/Analytical Chemistry with Microelectrodes.

This project is in the general area of analytical and surface chemistry and in the subfields of electrochemistry and separation science. Three areas of technological and fundamental importance are addressed by this research. In the first area, extremely small microvoltammetric probes will be disigned and characterized and their use for the dynamic in vivo quantification of intracellular neurotransmitters will be evaluated. In a second area, capillary zone electrophoretic and microcolumn open-tubular liquid chromatographic protocols will be developed for the analysis of ultra-small-volume samples. Coupled with newly developed electrochemical detectors, these methods should permit the detection of sub-femtomolar concentrations of redox-active analytes and provide a static quantitative method for neurotransmitter analysis to complement the dynamic approach already described. Thirdly, the unique electrochemical behavior of metallocene-derivatized phosphazenes and phosphazene polymers will be investigated and their potential utility as charge storage media evaluated. This five year continuing grant to The Pennsylvania State University for the support of Professor Ewing as a Presidential Young Investigator is designed to enable his rapid and effective initiation of this broad and innovative research program in chemistry.